Progressive Collapse of Cable Stayed Bridges

Cable-stayed bridges are becoming more numerous and it is important to design against collapse during construction and in the final condition. The investigation will consider the effects on the total system if one or more cables fail as a result of several possible causes. Computer programs will be developed for various arrangements of cables.